Solar and Magnetospheric Studies

The motion of energetic particles in the geospace environment depends sensitivety upon solarwind changes. This grant is to assess the long-term solar cycle affects on the characteristics of energetic particles in the near-earth space and the contributions from the escape of magnetospheric particles to upstream ion events near the Earth's bow shock. It is also planned to investigate energetic particle processes during substorms through participation of CDAW-9 and by comparison between substorm intensifications and particle bursts. An additional project will be to examine the stability of the neutral sheet in the so-called current disruption region in the magnetotail. *** //